Mathematical Sciences: Mathematical Problems in Statistical Mechanics and Condensed Matter Physics

The principal investigator will address mathematical questions in several different branches of statistical mechanics and condensed matter physics. First, she will investigate both equilibrium and non-equilibrium properties of some simple classical systems. Second, she will study collective phenomena in some rather simple quantum systems, including both quantum spin models and systems of particles with anomalous statistics. All the questions she will address concern the behavior of systems with a large number of degrees of freedom, usually infinite. The mathematical methods to be developed to study these systems are rooted in probability theory and analysis, but also make use of dynamical systems, differential equations, group theory and numerical methods.